Calculus & Mathematica

Students are discovering the concepts and ideas of calculus by exploration and experimentation in a revitalized calculus course, called Calculus & Mathematica, that combines the concept of calculus as a laboratory science with correct mathematical foundations. The classroom/laboratory is equipped with Macintosh computers and the text materials are presented via the Notebook feature of Mathematica.